Mathematical Sciences: Internal Layers in Fluid Flow and Solid Deformation

DMS 9732876 James Glimm Abstract Mixing layers, internal layers, and fronts are the primary features of many important fluid flow and solid deformation problems. The proposers have established striking progress in these areas, and propose here to develop systematically an effective theoretical and computational methodology for their study. The central intellectual challenge in the study of layers and fronts involves the complex interactions of physical processes with disparate length scales. The length scales of key microscopic processes within a layer are typically orders of magnitude smaller than those of the ambient fluid in which the layer is embedded, yet they may have a profound effect on the macroscopic structure of the fluid flow. For this reason, direct numerical simulation requires special algorithms to resolve the important layer microstructure accurately with reasonable computational resources. The theoretical challenge is two-fold, as the problem requires scale-up techniques to understand the effects of the microscopic processes at the macroscopic level, and then methods to express the nonlinear coupling of distinct physical processes operating on comparable length scales. While the study of layers and fronts is at least a two-scale problem, the interest here is in practical applications, which usually involve multiple length scales within a layer. This project will provide (a) the theoretical and algorithmic basis for a new class of production codes for the simulation of complex fluid flow and solid deformation; (b) the theoretical basis for understanding turbulent multiphase flow and fluid mixing; (c) validation of turbulence and mixing models, through exploration of parameter regimes in highly resolved simulations that are in step with physical experiment; and (d) a new mathematical theory for the interaction of nonlinear hyperbolic waves, including an understanding of phenomena which can in some cases prevent or overcome the poor perform ance of simulation codes. When the surface of contact between two distinct materials is unstable, small random disturbances on the surface will develop into interpenetrating structures, such as fingers, jets, droplets, and bubbles. These structures are complex and chaotic, and together they comprise a "mixing layer." Mixing layers are of fundamental importance in natural phenomena such as supernova explosions, and in technological applications such as inertial confinement fusion (ICF), where they are known to be a major limiting factor in the performance of ICF capsules. Typically a mixing layer is embedded in a large-scale fluid or solid flow, and in this case the precise resolution of a mixing layer by computer simulation is impractical (if not impossible) if the computer code is to be used to make quantitative predictions on a regular basis. For this reason, a scientific theory is required to capture the unresolvable microstructure of mixing layers in a macroscopic framework which is amenable to computer simulation. The goal of this project is to develop such a theory and to demonstrate its validity by comparison with computer simulation and physical experiment. This work will require new ideas, as described in this proposal, and will contribute to the fundamental knowledge base of science, of significance to a broad range of scientific phenomena.